Conference: FASEB RNA Sorting,Transport, and Localization in Development; to be held in Snowmass, CO, June 10-15, 2000

0076176
Etkin

The importance of RNA sorting, targeted mRNA transport, and local protein synthesis has become evident as a result of the convergence of information from studies focusing on a variety of molecular, cellular and developmental questions. Through these diverse efforts, it is now clear that the targeting of mRNAs to particular intracellular locations plays a key role in biological processes that include the establishment of oocyte polarity, early embryonic differentiation, somatic cell polarization and function, synapse growth, and plasticity in the vertebrate nervous system. The goal of the proposed conference is to bring together researchers with a wide range of backgrounds and perspectives who study RNA sorting and localization using a variety of experimental approaches. It is the intent to explore common themes and questions including: (i) The role of RNA localization in the establishment of embryonic cell lineages and axial polarity in invertebrates and vertebrates; (ii) the nature of the cis-acting signals and trans-acting factors that target mRNAs to particular intracellular locations; (iii) the nature of the delivery systems that are involved; (iv) the mechanisms that anchor localized mRNAs once they research their proper destinations; (v) definition of the nature and number of different destinations that reside within individual cell types; (vi) the extent to which mRNA translocation and sorting is regulated by extracellular and intracellular signaling processes; (vii) the mechanisms involved in transport of RNAs from the nucleus to the cytoplasm and in some cases from the cytoplasm to the nucleus; and (viii) the multiple ways in which RNA sorting plays a role in cellular function such as translational regulation.